Reduction of End Effector Sensitivity to Robot Arm Structural Deflections by Implementation of a New Micromanipulator Design

Poor endpoint positional accuracy of current industrial robots has restricted their applications to tasks that are error tolerant. This research focuses on improving end-of-arm accuracy by mounting additional sensors and actuators on the end effector. The rationale is to make the gripper insensitive to link static and dynamic deflections. This technique requires design and development of a new sensor and actuator capable of measuring and correcting the end-of-arm transverse deflections in the vertical and horizontal directions. To separate the issue of compensating for the end-of-arm deflections from the overall control problem of the robot arm, the additional sensors and actuators will be tested on a single flexible beam controlled by a servo loop controller. A mathematical model describing the combined rigid and flexible motions of the compliant link will be developed. Performance of the proposed approach will be evaluated through digital simulation studies. Further evaluation will be performed by testing the sensor and actuator on an actual flexible link.